Future Earth Initiative

DRL 0741760
Future Earth Initiative
PI: Patrick Hamilton
Science Museum of Minnesota

ABSTRACT

The Science Museum of Minnesota, in collaboration with six NSF-funded Science and Technology Centers (STCs) around the country, are developing several deliverables around the theme of the Anthropocene epoch, i.e., the idea that the Earth is currently in a period of its history where humans are the dominant planetary agents of change.

Deliverables include: (1) a 3,500 square-foot exhibit at the museum; (2) a changing set of small exhibits on sustainability science and design that will be both at the museum and the University of Minnesota; (3) an Earth Buzz Web site equivalent in intent to the museum’s very popular Science Buzz site on current science; (4) kiosks with Earth Buzz experiences in selected public venues where the STCs are; (5) Talking Circle discussion groups with decision makers on the implications of the exhibit topic for policy; and (6) youth programs and activities that engage them with the exhibit, Web site, and careers in STEM.

The exhibits and Web site will feature scientific visualizations and computational models adapted to public learning environments from the STCs’ research. Twin Cities Public Television will produce several first-person narrative videos of scientists and their research that will be incorporated into the deliverables as well as be packaged as a program for public television.

The intended strategic impact on the field of informal STEM education is twofold: (1) to learn how to accelerate the dissemination of scientific research to public audiences; (2) to continue to explore ways science centers/museums can use exhibitions as educational frameworks for public policy dialogues.